CEDAR: Radar Investigations of Mesospheric and Lower Thermospheric Dynamics at Sondre Stromfjord, Greenland

The PIs wish to install and operate a partial reflection drifts and a meteor radar over a three-year period at Sondre Stomfjord, Greenland. Goals include studying high-latitude dynamics in the height range from approximately 60 to 110 km. The cooperative research effort with Clemson University and the University of Colorado will include the study of seasonal variations in tidal amplitudes and phases, gravity wave characteristics, climatology, and fluxes, and the scattering mechanisms producing the partial reflections.